Challenge 2001: The SIMM Project

The State of Montana proposes a Statewide Systemic Initiative, "Challenge 2001: The SIMM Project", designed to restructure mathematics education in Montana. Building on momentum already underway in Montana in the K-8 mathematics program, this project proposes to: develop an integrated mathematics curriculum for grades 9-12; develop curriculum materials; incorporate the use of technology; increase the number of females and Native Americans involved in science and mathematics; establish new certification and re-certification standards; redesign teacher preparation programs; develop an inservice program; develop a support structure for implementation of the new programs. Cost sharing: 161%.